Design Of Neurocontroller to operate Active Flight Surfaces

The P.I.'s will extend their work in neural network-based control technology by applying there concepts to the control wing surfaces of an aircraft. Their neurocontrol algorithms will be used to deploy the active surfaces of a wing. This will be simulated with neural networks monitoring various sensors and controlling the active wing surfaces. The P.I.'s believe that it is possible to take control theory that has been used in robotics and develop it to function in aeronautical applications. To prove this, they will employ a system they are using in a robotic application that is based on a distributed adaptive control theory developed by Seraji (1989) and enhanced with neural networks. They will use a multiple neural network systems approach as outlined in their NSF Final Report ( will be tested in a flight simulation and demonstrated in a realistic scenario on a high resolution, three dimensional graphics workstation.